Testing A Coherent Body of Physics Simulation Software

The Project Director is one of the developers in a large-scale project entitled Consortium for Upper-Level Physics Software (CUPS). This Consortium involves 30 faculty members spread over 27 major degree-granting physics institutions. The main goal of the Consortium is to improve the teaching of physics by making more effective use of the power of modern personal computers. The Consortium is developing physics simulation software and accompanying texts which complement material normally covered in nine upper-level undergraduate physics courses. A typical simulation may perform calculations of real physical systems, based on a model, or analysis of real data from experiments. The texts describe numerous exercises and experiments that students can perform with each of the simulations. The purchased equipment consists of computers of sufficient power to run the CUPS software and specialized projection apparatus needed to demonstrate the CUPS software. Demonstrations are necessary to acquaint students with the software. The remaining computers are being used by students to carry out projects and exercises based on the CUPS software. The CUPS software must be thoroughly tested at each of the participating institutions before general release. The equipment is essential for the success of this endeavor.